RUI: Establishment of an Inductively Coupled Plasma Mass Spectrometery (ICP-MS) Facility

9405716 Ghazi This award provides one-half the funding required for the acquisition of an inductively-coupled plasma mass spectrometer system (ICP-MS) to be installed and operated in the Department of Geology at the Georgia State University. The University is committed to providing the remaining funds necessary for the acquisition of the equipment. The instrument is to be used for trace and ultra-trace elemental and isotopic ratio analysis. It will be used by the Principal Investigator and colleagues at the Georgia State University and will be operated and managed in order to provide access regionally to other qualified researchers needing a rapid and accurate method of multi-element analysis. Specific research projects requiring the capability of the ICP-MS include: (1) trace and rare earth element determination of fluid inclusions with applications to processes of hydrothermal alteration and the formation of ore deposits, (2) studies of water chemistry (stream flow and groundwater) within the Piedmont Province, (3) trace element analysis of human bone to reconstruct paleodiets, and (4) other geochemical research. The instrument will also be incorporated in the teaching of the Geology Department at Georgia State University. ***